Update of the Microprocessor Laboratory Equipment

The Physics Department at Rutgers University-Camden will upgrade its present microprocessor laboratory in order to keep the student laboratory work in step with the already updated lecture material and the changes in industrial employment demands. The Department will install fourteen microprocessor developmental study system units. Each unit will consist of a Motorola MEK68000ECB educational computer board, video display, cassette transport, and interconnecting cables. In addition, a network switch, two printers, and cables will be added for hardcopy of student ouput and system communication. The new equipment will give the student hands on exposure to the latest 16/32 bit CPU architecture. The laboratory exercises will illustrate synchronous and asynchronous data acquisitions and control, 16/32 bit bus architecture, 8/16 bit I/0 control, higher level assembly language programming and co- processing techniques with other CPU families. In addition, present laboratory support equipment will afford the opportunity of using higher level system development tools such as Pascal, C, trace analyzers, and process emulators.